Atomic Scale Chemistry

Non-Technical Abstract

The primary objective of the proposed research lies in the study of chemistry at the atomic scale by the use of homemade scanning tunneling microscope (STM). By probing individual atoms and molecules, their interactions with the environment and assembly into more complex nanostructures, it should be possible to gain new knowledge on chemical bonding, structure, and reactivity. This knowledge would enable better control of chemistry, allowing the synthesis of new molecules, the assembly of previously unknown systems, and the realization of technological innovations. Since the experiments probe chemistry at the quantum mechanical level, some of the results should serve as physical realization of problems and concepts that are currently taught in modern physics and chemistry courses. Equally important is the visualization provided by the imaging capabilities of the STM. Atoms, molecules, and their assemblies previously only imagined using words and pictures can now be imaged and visualized. Such images provide powerful impressions on the general public, and make effective outreach to K-12 and university students. The subject of the proposed research on individual atoms and molecules is an important one since they form the building blocks of everything around us. Furthermore, seeing individual atoms and molecules and their interactions takes the public a step closer to the understanding and appreciation of the new nanotechnology. In summary, this project advances our basic understanding of science and technology as well as serving an effective outreach and education of students and the general public through visualization of what and how every matter comes to be. The project is being co-funded by the Chemistry Division and the Division of Materials Research.

Technical Abstract:
Two unique, homemade low temperature scanning tunneling microscopes (STM) are used to probe the interior of single molecules and their assemblies. One of the STMs incorporates an RF excitation source and is immersed in a low magnetic field of 700 Gauss and operates at 15 K. The second STM reaches < 1 K and is in a magnetic field up to 9 Tesla. These unique STMs enable novel experiments to be carried out, including atomic scale spin properties and magnetism, high resolution spectroscopy, and quantum tunneling. The systems expand over a large range of size, starting from single hydrogen atoms to multi-atom metal-containing organic molecules. By probing the interior of single molecules, it has become possible to understand the their inner machineries, including electron-vibrational coupling, energy and electron transfers, spin structure and coupling, and nuclear motions leading to bond dissociation or formation. Instrumentation development and refinement continue to be an important mission of this project, enabling the realization of cutting-edge research techniques. All aspects of the two STMs are homemade, including the microscope, electronics, and software. The students gain valuable laboratory skills and experience in solving problems. This knowledge serves them well in their future careers by providing them with the capabilities in entering new fields and tackling problems that may be remotely connected with their university training. Results from the project are also expected to be transferred to the classroom, particularly the images that enable the visualization of individual atoms and molecules as well as their interactions. In addition, students, including K-12, are often excited by the visualization during visits to the laboratory. These activities will be enhanced through field trips on Saturdays and special summer programs for high school students.